Improved Growth of Crystals for Infrared Detectors.

Detectors of infra-red radiation use crystals of HgCdTe. These crystals in turn are grown on substrates formed by CdTeSe crystals. The performance of the HgCdTe crystals will be better if grown on better substrates. A better method of growing CdTeSe crystals is proposed.